Combinatorial Cryptography

This research addresses various areas of cryptography that have a significant interaction with combinatorics. The three primary areas of research are: (1) secret sharing schemes; (2) authentication codes; and (3) resilient functions. Secret-sharing schemes allow shared computation of a secret key by certain specified groups of people; they have applications in any scenario where shared access or shared control is important. codes are a fundamental cryptographical tool used to guarantee that information has not been altered, and that it originated with the intended sender. Resilient functions are a type of cryptographic function that have application to different problems, including designing of stream and block ciphers and key exchange protocols. All of these areas involve combinatorial theory in an essential way. Combinatorial designs, graph theory, error-correcting codes, and linear programming all play an important role in this work.